A Convex Computational Framework for Understanding and Controlling Nonlinear Systems

Complicated engineered systems have become increasingly common and autonomous, with examples including underwater vehicles, UAVs, and self-driving cars, as well as less visible systems such as power inverters, battery storage devices, network routers, and data storage devices. Extended periods of autonomy inevitably lead to such unexpected changes as: altered or degraded system configuration; failures of actuators or sensors; and evolution of the working environment. Without an automated mechanism for identification of and adaptation to such changes, it is likely that the technological foundation of our society will become increasingly unreliable. The goal of the project is to improve autonomy in complicated systems. Specifically, optimization algorithms are used to learn the environment, analyze this information, and design control strategies. Based on fundamental theory of how dynamical systems operate, these algorithms provide a rigorous basis for cognizance and adaptability. The impact of this work will be a more safe and reliable technological infrastructure, both on earth and in space. Increasing the reliability and duration of autonomous systems will lead to, for example, faster and cheaper exploration of space, safer transportation networks, and more reliable communication networks.

Recently, Sum-of-Squares (SOS) algorithms have become a powerful tool for understanding nonlinear dynamical systems. The power of SOS lies in its convex parametrization of non-quadratic Lyapunov functions. Unfortunately, however, this convex formulation assumes the dynamics are known and has not been extended to estimating the Region of Attraction (ROA), Minimum Invariant Set (MIS), and Forward Reachability (FRS). At the core of this project is the novel observation that the ROA/MIS/FRS problems can be expressed using sub- or super-solutions to a value function defined by the solution to a Hamilton-Jacobi-Bellman (HJB) equation. The first part of the project exploits this equivalence to show that the ROA/MIS/FRS problems can be posed as SOS optimization problems wherein the objective is volume minimization or maximization of sublevel sets of a sub/super-value function. The second part of the project uses new convex volume metrics to solve these SOS volume optimization problems. The third part of the project considers the case where the dynamics are unknown and uses trajectory data to directly estimate the ROA and FRS without use of a dynamic model. The algorithms are also applied to control of spacecraft attitude dynamics.